CAREER: Robust Optimization and Applications

Most models used in engineering are prone to errors: poor measurement of physical
parameters, complexity of phenomena at hand making "exact" models too hard to handle,
etc. These uncertainties are now an important limiting factor in the use of optimization,
which by nature tends to finely tune solutions to problem data.
I propose a general framework for decision problems with uncertainty, based on a robust
optimization approach. In this framework, uncertainty on problem data is treated as
deterministic, unknown-but-bounded. A robust solution is one which tolerates changes in the
problem data, up to the given bound. Such a solution is too hard to compute in general, but
relaxation techniques based on convex optimization can be devised to approximate the
problem in an exhaustive manner. An efficient trade-off between computer effort and accuracy
is obtained by finely exploiting the uncertainty structure in the relaxation process.
The idea of robustness is well-known in the area of feedback control systems analysis
and design, where I and others have developed very effective relaxation methods based on
Linear Matrix Inequalities and related convex optimization. Obviously, robust optimization
is relevant far beyond feedback control, for example to the combinatorial optimization
problems with uncertain data arising in communications network design. This opens new
avenues of research where seemingly very different problems are analyzed and solved in a
unified framework.
My proposal centers around theory and algorithms for robust optimization: convex
optmization relaxations, large-scale problems, accuracy/complexity trade-offs, software. A
specific target of this research is the development ofvarious ellipsoidal approximation tools,
with applications to data fitting and estimation, simulation, and control of systems with
structured uncertainty. In addition, I seek to apply these techniques to several important
design problems in engineering, including timing analysis of RC circuits, filter and antenna
array design, communications network design, and others.
In addition to robust optimization tools and engineering applications, I plan to study sev-
eral important problems in finance and management under the viewpoint of robustness and
worst-case risk-notions that begin to stir great interest in the community. I intend to develop fast and efficient robust optimization tools that are specific to finance and management
issues, based on ellipsoidal techniques for worst-case simulation and control.
My education plans aims at providing a solid theoretical and practical basis for our
students in the area of optimization, emphasizing the crucial issues of uncertainty and
robustness. This goal will be implemented by course development intwo subjects: an advanced
course in robust optimization, and a basic graduate course in convex optimization. An
important aspect of this plan is the development of user-friendly robust optimization software
tools that complement those I have developed in the past for convex optimization.